Mathematical Sciences: Some Recursion Theoretic Problems

Investigations will be pursued into: automorphisms of the recursively enumerable (r.e.) sets, a combinatorial problem related to initial segments of the truth-table r.e. degrees, and Borel orderings. These are topics in the foundations of mathematics and computer science, underpinning our notions of what constitutes a proof.